Development of High-Resolution Energy Sensors for In-Situ Monitoring of Thin Film Manufacturing

ABSTRACT This work will monitor the deposition and growth of thin films onto a surface at the molecular level using a novel microcalorimeter to measure the energy release during deposition of the film. Besides the development of a diagnostic tool and the fundamental measurement of energy release during molecular-thickness thin-film deposition, the work may lead to a method for control of industrial thin-film deposition.